Louis Stokes STEM Pathways and Research Alliance: University of California Louis Stokes Alliance for Minority Participation (CAMP)

he Louis Stokes Alliances for Minority Participation (LSAMP) program assists universities and colleges in their efforts to significantly increase the numbers of students matriculating into and successfully completing high quality degree programs in science, technology, engineering and mathematics (STEM) disciplines in order to advance the STEM workforce and support the production of scholarly research in STEM. Particular emphasis is placed on transforming undergraduate STEM education through innovative, evidence-based recruitment and retention strategies, and relevant educational experiences. These strategies facilitate the production of highly competitive students motivated to pursue graduate education or careers in STEM.

The California LSAMP Alliance consists of nine campuses in the University of California System with an overall goal to significantly increase the number of undergraduates who graduate from UC campuses over the project period and to provide training for 21st century STEM careers or for graduate study and research. A major institutionalization will occur during this project period is to broaden the scope of CAMP to include close contact with other UCOP programs providing students with opportunities that will increase retention and graduation rates. In addition, the project will employ a major focused effort into increasing the number of community college students who transfer and graduate with B.S. degrees from UC STEM disciplines, as this transfer rate is a gap in the STEM student intake at UC. Activities will include faculty-mentored research experiences, using a system-wide research portal model to open opportunities between and among campuses, including to community college students intending to transfer. The research component is a major external assessment component to ensure honest evaluation of the successes and shortfalls in the program and in the network of campuses in the alliance.

The California Alliance will continue to provide evidence for institutional change and will serve as a national engine of increased numbers of undergraduates who successfully complete STEM degrees. Alliance partners will share information with the external evaluators and the educational researcher who will analyze and disseminate the findings through presentations at professional meetings, publications in peer reviewed journals, and various virtual opportunities. Findings will ultimately result in sharing best practices with colleges and universities, as well as all LSAMP programs, around the country. A system wide LSAMP website will be both a repository for findings and information and a portal for opportunities across the Alliance and into partner institutions across the State.